Collaborative Research: Investigating Student Learning and Sense-Making from Instructional Calculus Videos

Calculus is a cornerstone and integral part of college-level science, technology, engineering, and mathematics (STEM) programs, yet less than half of all college students who intend to pursue a major in STEM fields succeed in doing so. Educational researchers have found that calculus presents a significant hurdle for these students. To help counter this, over the past few decades, instructors have become increasingly willing to experiment with innovative teaching formats, such as providing students with instructional videos outside of class to promote a more active and engaging learning environment. Despite this increasing popularity, relatively little is known about how students watch and learn from these instructional videos. To help instructors design videos to better promote student learning of mathematics, this project will collect data about how students use, engage with, and learn from calculus videos. Furthermore, this project will investigate the impact that various ways of structuring the video-watching experience has on student learning. In doing so, this project will generate new knowledge about the effectiveness of various implementation methods for instructional videos in supporting students' productive ways of understanding foundational calculus concepts and real-world applications.

This project will contribute to the understanding of how students make sense of and learn calculus from supplementary instructional videos. Project team members will adapt ideas from the fields of information systems and organizational studies to investigate: (1) the ways students interact with video lectures, including how they pause, skip, and re-watch portions of the videos; (2) the aspects of the videos students attend to - and report attending to - as they watch; (3) the ways students make sense of and learn from these videos, and how this relates the other aspects described above; and (4) how various ways of structuring the video-watching experience, such as providing an outline or pre-watching questions, can influence each of these aspects. Data will be obtained from multiple sources, including student responses to mathematical content questions before and after watching videos, timestamps of students' interactions with videos (i.e., playing, pausing, and time-shifting videos), student responses to interview questions as they watch videos, and eye-tracking data collected as students watch videos. The mixed-methods analysis will yield knowledge about the ways students interact with and learn from instructional videos. This investigation into various methods of structuring the video-watching experience will contribute to the field's understanding of how to create and use videos as effective curricular resources and learning tools. In addition, the project will produce research-based guidelines for creating and effectively using instructional calculus videos. By achieving these goals, the research project has the potential to improve the quality of STEM education and, ultimately, contribute to the development of a globally competitive STEM workforce.